US-China Coop Research: Occurrence and Distribution of ToxicCyanobacteria(blue-green algae) in China;Isolation & Charac-terization of Toxins and Their Role in Waterbased Diseases

This proposal on "Occurrence and Distribution of Toxic Cyanobacteria (blue-green algae) in China; Isolation and Characterization of Toxins and Their Role in Water-Based Diseases" between Dr. Wayne W. Carmichael of Wright State University and Professors Yu Min-Juan and Li Shang-Hao of the Institute of Hydrobiology Exploration is jointly sponsored by NSF and the Chinese Academy of Sciences. This joint research project will perform a more rigorous investigation of the ecology of toxic cyanobacteria and their role as agents of water-based disease in the increasingly eutrophic lakes of China. The research will build on preliminary studies by the Chinese investigators in 1985, and both the Chinese and American investigators in 1986, which established the presence of toxic cyanobacteria in several eutrophic lakes and ponds near Wuhan. The investigators propose to study the occurrence and distribution of waterbloom forming toxic cyanobacteria (blue-green algae) in selected lakes, ponds and other water bodies of central and southern China. They will isolate toxins and characterize them chemically; culture clonal isolates of toxic species to study toxin production, including environmental factors which select for the presence of toxic strains; and compare toxic strains and their toxins with other cyanobacteria which the American principal investigator collected from North America, Europe, South Africa, Australia and New Zealand.